Ab Initio Quantum Chemistry on Parallel and Distributed Computers with Gaussian 92

This Small Business Innovation Research (SBIR) Phase I project is in the area of theoretical and computational chemistry. This research will explore the issues involved in parallelizing Gaussian 92, the most widely used electronic structure software package, using the Linda programming environment for workstation networks and multiprocessors. Since both Gaussian 92 and Linda emphasize portability across multiple computer architectures, this project will offer chemists electronic structure modeling with the power of parallel processing while retaining both the range of models offered by Gaussian and the choice of most cost-effective platform for each user. At some sites otherwise idle cycles on existing workstation local area networks (LANs) are expected to provide a major source of new and productive computing capacity which can be utilized as a result of this effort. In order to achieve this, the key kernels of the algorithms in Gaussian for various models must be identified, and methods developed of parallelizing these computations while retaining their high efficiency on individual processors. The Phase I research will demonstrate the feasibility of using Linda on workstation networks for this purpose on one critical type of model, Hartree-Fock (including gradients and second derivatives), identify the key kernels of the other models, and develop a strategy for parallelizing them as part of a Phase II effort. %%% This Phase I project addresses the important questions of how Gaussian 92, the premier ab initio code which is used by industrial and academic researchers alike, can be run in a distributed network. The research plan should establish proof of concept for a product that is expected to be commercially important.